Basic Studies in Gas, Liquid and Supercritical Fluid Chromatography: A Unified Approach

This project is in the general area of analytical and surface chemistry and in the subfield of chromatographic science.